Computer Simulated Negotiation in a Cross-Cultural Context

As social scientists the laboratory is the world and the best approximation and understanding of the ways in which nations operate is through representative experiments such as simulations. Simulation as a technique for teaching and learning is an integral part of the Political Science curriculum. However, the simulations were based on human interaction and simple forms of communication. The project is enabling the college through the addition of computers, printers, modems, and support equipment to become a full participant in the International Negotiation Project, which is a simulation of foreign policy decision making that relies on computer technology for communication between member institutions. The simulation is unique and of special interest because institutions around the world routinely participate and communicate in their native tongue. This helps stress problems of decision making while also addressing issues of cross- cultural communication and problems of translation.